High-order cut discontinuous Galerkin methods for wetting and drying in multi-layer shallow water models

The objective of this project is to develop mathematical methods for improving next-generation models for predicting ocean dynamics and ocean-based flooding such as hurricane storm surges and tsunamis. Reliable and efficient models for ocean dynamics and ocean-based flooding are vital tools for naval operations, early warning systems/public safety, and the study of coastal erosion, marine life, and weather prediction and directly supports both the NSF’s mission to promote the progress of science and advance national welfare and defense and the U.S. President’s 2027 R&D budgetary priority on Ocean Exploration and Observation. Current models are impacted by their ability/lack thereof to capture both fast and slow dynamics while maintaining accuracy near coastlines and as flood water encroaches on and recedes from land. This project seeks to develop and implement new algorithms for handling the encroachment of water onto land and apply them to model ocean dynamics, storm surge, and tsunamis. The development of such algorithms advances the field of numerical methods for fluid flow and provides key functionality for simulating ocean-based phenomena, including devastating weather and flooding events.

This project seeks to develop advanced cut mesh wetting and drying schemes for finite volume (FV) and discontinuous Galerkin (DG) methods for the shallow water and multilayer shallow water equations (SWE/MSWE). Here, “shallow” is used to refer to flows where the horizontal length scale of the problem is far, far greater than the depth of the fluid. While the SWE are pivotal for simulating ocean-based flooding such as storm surges and tsunamis, the more advanced MSWE are required for accurate simulation of ocean dynamics driven by density stratification, such as upwelling. Due to their long time and length scales, many SWE and MSWE applications benefit greatly from high-order methods’ lower dissipation. However, both high- and low-order numerical methods struggle with wetting and drying, i.e., the encroachment of water onto land and its subsequent retreat, with existing wetting and drying schemes often being restricted to low-order methods or causing a loss of high-order accuracy. While wetting and drying is a perennial nuisance to SWE models, it can be extremely prohibitive for MSWE models and limits their use. This project seeks to implement a novel, high-order accurate cut wetting and drying scheme, where the wet-dry interface is captured by time-dependent cuts to the otherwise Cartesian background mesh, along with adaptive mesh refinement for the SWE and MSWE. The accuracy, consistency, and well-posed-ness of the resulting algorithms will be studied when applied to the SWE, MSWE, and MSWE with barotropic-baroclinic time-splitting for 1D and 2D problems.